A Comprehensive Simulation Model of Parasitoid Behavior in a Tritrophic World

The proposed project involves the development of a stochastic individual-based simulation model of parasitoid behavior within a tritrophic context. This model will be used to investigate the role of learning in a) determining foraging success, and b) facilitating changes in the size and composition of parasitoid populations. In the process of addressing these larger questions, the model will be used as an experimental tool for testing specific hypotheses drawn from current theory in insect learning, and as a tool for organizing current data and identifying key questions for future investigations of tritrophic interactions. The model will be based on a review of the current literature and developed using an iterative feedback process involving empirical studies with live parasitoids. Informal collaborations will be encouraged during all phases of model development; the resulting comprehensive and user-friendly model will be available to all interested researchers.